Gaussian Beam Methods for Large-Scale Computational Electromagnetics and Applications

The Investigators propose to develop and implement novel and
efficient Gaussian-beam-based computational methods for large-scale computational
electromagnetics motivated by industrial and military applications. The project addresses
several fundamental issues in scientific computing and applied mathematics, such as
multi-scale modeling, simulation, and inverse problems, which are essential in material
sciences and nanotechnology. Computational electromagnetics has become a fundamental,
vigorously growing technology in diverse science and engineering disciplines, ranging
from radar, sonar, seismic imaging, medical imaging, lithography processing, detection of
land mines, submarine detection, stealth technology, remote sensing, electronics to
microscopy and nanotechnology. The new methodology resulting from Eulerian Gaussian beam
methods has substantial impact on computational electromagnetics and applications,
particularly at high frequencies.

The research involves large-scale direct and inverse scattering problems for electromagnetic
wave propagation with high wave numbers. The Investigators will develop efficient and accurate
Eulerian Gaussian beam methods for Maxwell's equations in inhomogeneous media in the high
wave number regime. Furthermore, the Investigators will apply the new Gaussian methods to three
challenging and practically important problems for Maxwell's equations: inverse medium
problems, large cavity problems, and diffraction grating problems. New Eulerian
Gaussian-beam-based algorithms will be developed for the first time for these applications.
The Gaussian beam method will be capable of producing uniform asymptotic solutions beyond
caustics for wave propagation with high wave numbers. These new Eulerian Gaussian beam
methods should also provide an efficient tool for many other applications related to
electromagnetic waves in inhomogeneous media.
-------------------------------------------------------------------